PostDoctoral Research Fellowship

This award is made as part of the FY 2012 Mathematical Sciences Postdoctoral Research Fellowships Program. These fellowships support a research and training plan at a host institution in the mathematical sciences, including applications to other disciplines. The title of the research and training plan for this fellowship to Mark Lewko is "Harmonic Analysis." The host institution for the fellowship is the University of California, Los Angeles, and the sponsoring scientist is Dr. Terrence Tao.